Mathematical Sciences: Workshop on Writing Skills for Young Investigators

This award will support a series of annual Workshops on Writing Skills for Young Investigators. These workshops will be held at annual meetings of the Institute of Mathematical Statistics or the American Statistical Association. The goal of the workshop is to improve the technical writing skills of junior investigators by their interactions with senior investigators and editors of journals. This award will support a series of annual Workshops on Writing Skills for Young Investigators. The first of these will be held in Boston, Massachusetts in August, 1992. There will be two more workshops, one held in each of the subsequent years in various locations.